Research Initiation: Modeling and Characterization of Ceramic Matrix Composites with 2-D and 3-D Reinforcements

This project will assess the potential of developing ceramic matrix composites with various two dimensional (2-D) and three dimensional (3-D) reinforcements for high temperature structural applications. Silicon carbide fiber reinforced silicon carbide matrix composite will be used as a model system. Composites with different reinforcement geometries including 2-D woven, knitted; 3-D braided and 3-D angle lock structures will be fabricated. The experimental part will include characterization of the interface microstructure, damage development, failure modes, and toughening mechanisms under static fracture, impact and creep loadings. The analytical program will establish the constitutive relations, and the theoretical model of the response of the composite to various mechanical loading. In addition, the performance and deformation mechanism maps of various ceramic composites with the combination of different fiber/matrix/reinforcement geometry will be constructed. The results of this work will serve as the knowledge-base for processing and design of tough ceremic matrix composites based upon 2-D and 3-D reinforcements.